Enabling Dark Sector Discovery at the Short-Baseline Neutrino Program

Two of the strongest signs that the Standard Model of particle physics is incomplete are the tiny but non-zero masses of neutrinos and the existence of dark matter, the invisible substance that makes up most of the matter in the universe. Whether these two discoveries are connected is a central question in modern physics, and neutrinos, the lightest and most elusive of the known particles, may provide the link. With this award, experiments at the U.S. Department of Energy's Fermi National Accelerator Laboratory are used to search for hidden "dark sector" particles and forces that could tie these mysteries together, treating the neutrino as a natural portal between visible and dark matter. Beyond its scientific goals, the project serves the national interest by training two graduate students and a postdoctoral researcher in advanced particle-detector technology, machine-learning reconstruction, and modern statistical analysis, all skills essential to the future of the U.S. neutrino program and directly transferable to data science, medical imaging, and artificial intelligence.

The research is carried out within the Short-Baseline Neutrino program at Fermilab, which comprises three Liquid Argon Time Projection Chambers (LArTPCs), SBND, MicroBooNE, and ICARUS, capable of imaging neutrino interactions with millimeter resolution and distinguishing electrons, photons, and hadrons. Three coordinated efforts are supported. First, the complete MicroBooNE dataset is analyzed to resolve the long-standing MiniBooNE anomaly, a 4.8σ excess of electromagnetic events that remains unexplained after the electron-based interpretation was excluded; multiple complementary reconstruction frameworks are combined and roughly twenty final-state topologies are measured simultaneously to determine whether a recently observed single-photon excess reflects new physics or a Standard Model process. Second, the substantially higher neutrino flux at the near detector SBND is exploited to establish a broad search for dark-sector "upscattering," in which neutrinos scatter to produce short-lived heavy neutral states directly inside the detector, a lifetime regime inaccessible to traditional decay-in-flight searches, supported by a high-statistics characterization of neutral-current π⁰ production, the dominant background. Third, the PROfit statistical framework is developed to perform computationally intensive sensitivity and systematic-uncertainty analyses across the full multi-detector program. Together, these efforts are positioned either to identify the origin of the MiniBooNE anomaly or to eliminate its last remaining explanation, while opening new experimental sensitivity to a broad class of theoretically motivated dark-sector models.